Experimental and Theoretical Micro-Analysis of Hysteresis in Magnetic Media

An MRG is to be established which attempts to develop a fundamental understanding at the microscopic level of magnetic media. The program involves study of both model magnetic media as well as real materials utilized in industry, and attempts to make the link between these data. The group will conduct both experimental and theoretical investigation of microstructure and magnetic properties of thin films and particulate. The goal of the project is the complete microscopic description of observed macroscopic properties such as hysteresis and magnetization time decay in materials used for information storage in tape and disk recording.